Participation of NSF Minority Postdoctoral Research Fellows in the Institute for Teaching and Mentoring, October 2004, Atlanta GA

This action funds the participation of up to 70 NSF Minority Postdoctoral Fellows in the annual national Institute for Teaching and Mentoring sponsored by the Compact for Faculty Diversity (a partnership between the New England Board of Higher Education, the Southern Regional Education Board, and the Western Interstate Commission for Higher Education). The Compact for Faculty Diversity (CFD) addresses the serious and chronic problem of the under-representation of minority faculty in institutions of higher learning. CFD has a proven track record of increasing the number of minorities earning the doctorate and entering faculty positions. The Institute for Teaching and Mentoring provides an opportunity for NSF Minority Fellows to attend a highly successful forum for learning about teaching and research as a career, networking, sharing information, career positioning, and identifying role models and mentors.